Solar Flare Gamma Ray and Neutron Studies

Observations of neutron and gamma-ray-line emission from solar flares are providing important new information on particle acceleration in solar flares and on the flare process itself. These gamma-rays and neutrons are produced directly by nuclear interactions of the flare-accelerated protons and heavier ions with ambient gas in the solar atmosphere. Thus they yield the most direct information available on the total number, energy spectrum, time dependence, and angular distribution of the accelerated ions in the flare region, and they can provide unique new information on both the scale height and the 3He/H ratio in the solar photosphere. Gamma ray line emission was first observed in 1973 and relativistic neutrons were observed in 1983. These observations have stimulated much more extensive theoretical calculations of gamma-ray line and neutron production by flare particle interactions and comparison of the flare observations with these calculations have provided much important new information. This grant will pursue these general theoretical objectives. In particular, the PI will calculate the gamma ray line emission with a view to determining the time dependence of particle acceleration in flares. All of this is with a view to comparing theory with observations in order to narrow the field of candidate models of solar flares.